SBIR PHASE I: Functional Nanostructures Through Spontaneous Emulsification and Self-Assembly

This Small Business Innovation Research Phase I project explores the feasibility of a novel and inexpensive synthesis, fabrication and processing route for creating nanostructures at high rates. The approach specifically targets synthesizing synthetic gecko pads. Geckos have the unusual ability to adhere to surfaces with a dry nanostructure found on the pads of their feet. These nanostructures are so flexible and numerous that stresses on the order of one atmosphere result. This permits walking up walls and hanging upside down on ceilings. Phase I and Phase II, if successful, will provide adhesive manufacturers with synthetic gecko pads.
The commercial applications of this project include toys, clothing, and shoes, and any application that requires a dry, self-cleaning adhesive.